CEDAR:Sondrestrom Arctic Lidar Technology (ARCLITE) Facility

SRI International will establish a permanent lidar facility at Sondre Stromfjord, Greenland, capable of performing Rayleigh and resonant scatter measurements. The Arctic lidar technology (ARCLITE) facility will be installed at the Sondrestrom incoherent-scatter radar site to allow complementary studies with collocated upper-atmospheric instrumentation, existing and planned. The ARCLITE facility will concentrate on measurements of sodium D2 resonance backscatter to provide information on the characteristics of the high-latitude sodium layer, and on Rayleigh backscatter measurements to provide information on the structure of the high-latitude mesosphere/stratosphere region.***//